Learnability in Query and Restricted Distribution Models

The learnability of classes of functions in various formal learning models will be studied. There have been many negative results on learning even simple classes of functions in the Valiant PAC model. One goal of this research is to develop algorithms for learning relatively complex classes of functions in other learning models. A related goal is to determine the relative power of some of these learning models. Also proposed is the study of the relation between learnability of a class of functions, structural properties of the class, and the complexity of decision problems involving the class, in order to discover which classes of functions are learnable, by what means they are learnable, and what inherent qualities make them learnable.